IEEE PerCom 2013 Student Travel Support Request

This project funds travel for graduate students to participate in PerCom 2013 to be held San Diego, Californiain March 2013. PerCom is the flagship international conference in pervasive computing. Students will participate in an organized PhD Forum, both before and during the conference, demonstrate their work in a Poster Session, give presentations about their research, and be mentored by senior researchers.